Structure and Rearrangements of Carbocations. The Isotopic Perturbation Method

With support from the Organic Dynamics Program, Dr. Saunders will employ an extension of his isotopic perturbation method to clarify details of bonding and structure in carbocations. This approach, which takes advantage of the cooperative effects of multiple specific deuteration, affords information which cannot otherwise be obtained via observations made on molecules that are substituted with a single isotopic atom. The experimental studies will be supplemented by relevant ab initio quantum mechanical calculations. This will be done to predict carbocation structures and energies and also to predict equilibrium isotope effect values that can be compared with the corresponding values obtained experimentally. The operation of cooperative effects of multiple deuteration results in equilibrium isotope effects which are non-linear functions of the number of interacting deuterium atoms. Rapid processes, which can lead to non-linear isotope effects, include rotation around single bonds (which varies dihedral angles between carbocation orbitals and neighboring C-H and C-C bonds). The angular dependence of the isotope effects provides a highly sensitive probe of hyperconjugative distortion of carbocation structures. Dr. Saunders' research project is designed to improve our understanding of carbocations, where partial bonding and stereospecific interactions of bonds with cationic centers (i.e., hyperconjugation) play important roles. In recent years, a combination of new developments in experimental methodology and improvements in the quality of theoretical calculations has provided new insight into structural details and energy surfaces for carbocationic rearrangement processes. The present project focuses upon experimental extentions of Dr. Saunders' "isotopic perturbation method" (in which multiple deuteration results in cooperative effects that result in equilibrium isotope effects which are nonlinear functions of the number of deuterium atoms).